Pathways - Citizen Science In The California Naturalist Program: Building The Nexus Between Learning and Action

The University of California-Davis and its collaborators are identifying and testing strategies for implementing a model citizen science program that links the statewide Master Naturalist program with local citizen science projects that engage the public in scientific research. The goals of the project are to develop a mechanism for broadening the reach of master naturalist programs and measure the impact of participation in scientific research on citizens' science learning and environmental stewardship behavior.

The project is (1) implementing strategies for engaging underserved young people (ages 18-23) and enhancing learning for seniors in the California Naturalist program, (2) developing and testing a citizen science training module, (3) establishing two regional volunteer naturalist networks in Northern California that have links to local citizen science projects, and (4) developing web tools for use by naturalists and scientists to promote science learning. Project deliverables include training sessions, support services, network coordination, web tools, and participant tracking.

The project is expanding the involvement of at-risk and minority youth in naturalist training and citizen science activities, and connecting them to senior Master Naturalists to form inter-generational learning groups. Merging these audiences will result in the formation of a diverse corps of citizen naturalists who participate in ecological monitoring of local natural areas and conduct land stewardship activities. The project's findings will help program administrators scale-up the approach statewide and across the nation.